STEP: Toys and Mathematical Options for Retention in Engineering (Toys'n More)

This project is implementing proven retention strategies across a statewide system in order to increase the number of STEM graduates, primarily in engineering. The first strategy involves combining instructor intervention and supplemental instruction to improve student success in introductory math courses. The supplemental instruction leverages a previously developed online tutorial system coupled with personalized tutoring. Through the second strategy, a proven course from the main campus known as Toy FUN-damentals, is being implemented among the statewide feeder campuses. The Toy FUN-damentals course has been shown to increase student interest in engineering, especially among women and underrepresented minorities. The third strategy is implementing programs aimed at assisting underrepresented minority students in making the transition from high school to college. The components of the transition program include a summer bridge program, peer mentoring, campus visits, student leadership conferences, college of engineering visitation, and a sophomore transition tour. The final project strategy involves evaluation of the other three strategies for continuous improvement. The evaluation plan uses a mixed-method, quasi-experimental design to assess the effects of each strategy and the overall success of the project. The results from the project are being disseminated broadly among the engineering education community.